Particle Physics in Media

Research in theoretical physics will be carried out on the effects of the surrounding environment on elementary and nuclear particle reaction rates in astrophysical contexts. The applications are to neutrino physics in supernovae and neutron stars, to the early universe, and to nuclear reaction rates in stars. The areas of physics that come into play are particle physics, the quantum theory of many particle systems, nuclear physics, and astrophysics. The studies to be undertaken are important to our making progress on the solution of several astrophysical mysteries.